Conference: Travel Support for IWOTA 2025

This award will cover travel for fourteen early-career mathematicians to attend the International Workshop in Operator Theory and Applications (IWOTA), to be held at the University of Twente in the Netherlands, during July 14 - 18, 2025. The conference is not only the largest operator theory conference in the world, but it is also considered the premier event that connects operator theory to other disciplines that employ operator theoretic techniques and related mathematical results. IWOTA 2025 will be devoted to all aspects of operator theory and its applications and will feature top researchers from all around the world. Having such a major event organized in Twente will also provide a unique opportunity to reinforce research ties between some of the best experts in the field in the United States, the Netherlands, the United Kingdom, and Europe.

Many problems in physics, mathematics, and engineering can be best described by representing complex physical entities as large arrays of numbers and mathematical symbols called matrices. Matrices help us visualize how linear transformations act on vector spaces; determining their structure reveals important properties of the transformations. Hilbert space operators are infinite-dimensional generalizations of matrices. The generalization of a vector is often a function, so operators are frequently modeled as multiplications on spaces of functions. IWOTA 2025 will consist of several plenary mathematics lectures describing the latest developments in the relevant workshop areas. These lectures will cover the latest developments in the connections of single and multivariable operator theory with such specific topics as mathematical foundations of artificial intelligence and machine learning, numerical linear algebra, mathematical system and control theory, harmonic analysis, and spectral theory of both random and non-selfadjoint operators. Based on attendance figures at past meetings, the local organizers expect approximately three-hundred participants, including about forty graduate students. The conference website is https://www.utwente.nl/en/iwota2025/.